Mathematical Sciences: Conference on Reliability and Quality

This research conference will be held at the University of Missouri March 17-19, 1988. It will deal with topics from Reliability and Quality Control. Featured participants include R. Barlow from UC Berkeley, N. Mann from UCLA, N. Singpurwalla from George Washington, J. Musa from AT&T, and R. Kowalski from SIAM. Reliability Theory aids in the development of technology to ensure consistent performance, quality, and reliability of manufactured products, and has applications in the health sciences as well.